Raman Spectroscopy of Molecules Adsorbed on Solid Surfaces

This project, supported by the Analytical and Surface Chemistry Program, uses unenhanced Raman spectroscopy to probe the structure and reactivity of adsorbates at solid surfaces. Both electrochemical surfaces and surfaces characterized in ultra high vacuum will be investigated in the work to be carried out here. Technique development to extend the sensitivity of the method and to address the detection of nontotally symmetric vibrational modes in the adsorbates will be pursued. In addition, the work will focus on the characterization of the polyimide-metal interface. %%% The use of unenhanced Raman spectroscopy to characterize the structure of adsorbed layers at solid surfaces is the focus of this research project. Both technique development directed toward improving the sensitivity and applicability of this method, as well as direct studies of the polymer-metal interface make up the research to be carried out here.